Mechanism of Action of Bacteriophage T4 Translational Repressor RegA Protein

9513805 Spicer This project is to develop a high resolution model describing how regA protein recognizes and binds to specific mRNAs. Thus, our goals are to identify specific sites of interaction between regA protein residues and the known gene 44 recognition element through site specific mutagenesis, and photocrosslinking, and to collaborate with others in attempting to generate co-crystals of regA protein and a target RNA. To identify residues of regA protein that form critical bonds with target RNAs, structure-guided mutagenesis of regA protein will be coupled with in vitro screening techniques to identify informative, functionally deficient mutants. Proteins identified with functional alterations will then be examined for changes in RNA affinity and RNA recognition specificity using fluorescence quenching binding assays and "missing contact" assays. Photocrosslinking of regA protein to 5-iodouracil substituted RNA will be carried out to probe the sites of RNA contact on regA protein. We will make a series of mutations on the surface of regA protein, particularly at the dimer interface and test the mutant proteins for the retention of RNA binding activity. Clones over-expressing mutant regA proteins that retain WT RNA binding will be provided for crystallography trials. ***